Monitoring Gene Changes Following Long-Term Seed Storage, Award in U.S. and Indian Currencies

Description: This project supports participation by an Indian scientist, Dr. Swati Sen Mandi of the Botany Department, Bose Institute, Calcutta, in a research project being carried out by Dr. Joseph C. Kamalay, of the Agronomy Department, Ohio State University. In this research, investigation will be made on the changes in the integrity of DNA sequences from soybean (Glycine max L.) and frenchbean (Phaseolus vulgaris L.) seeds stored under ideal conditions for prolonged periods. Nucleic acids have been isolated from single seeds using a protocol to isolate DNA suitable for restriction endonuclease and genomic blot analysis. Two lines of evidence revealed extensive single strand breaks in DNA from 30 year seed when compared to DNA from 1 year seed. When DNAs were separated under denaturing conditions, genomic blots showed that individual genes within the 30 year seed were highly degraded. It is proposed to determine whether the celluar processes which produce these strand scissions are random or not. A detectable bias in the strand scissions would indicate the existence of potential "hot spots" for mutation. It is desired to determine if such site-specific changes occur during seed storage. Scope: This project deals with an area of considerable interest to molecular biologists, and also to agronomists, plant breeders, and to population biologists. Both the U.S. and the Indian scientists have been active in seed research. Dr. Kamalay's training was in molecular biology and his research focus has been in the structural integrity of the DNA sequences in seeds which have been stored for periods representing multiple generations. Dr. Mandi's work has been in the plant physiology and seed deterioration. The collaboration is likely to be very helpful for the research of both scientists, and should lead to broadening of the scope of the research at both laboratories after the conclusion of this project. The applied benefits of this collaboration are clear in helping maintain and develop germplasm for crop improvements. These attributes of the project fit well with the objectives of the Science in Development Countries program.